Mathematical Sciences: Finite Dimensional Algebras and Artinian Rings

This project is concerned with various aspects of artinian rings, in particular homological properties of finite dimensional algebras and decomposition properties of modules. In the first category, the goal is to obtain a better understanding of global and finitistic dimensions. Under the second, the aim is to obtain a representation theory for rings all of whose left modules are direct sums of finitely generated components. The research is in the general area of ring theory. A ring is an algebraic structure having both an addition and a multiplication defined on it. These objects arise naturally and are important in many areas of mathematics and physics.